Improving the Quality of and Access to Undergraduate Statistics Education

Mathematics (12) Improving the Quality of and Access to Undergraduate Statistics Education by using innovative web-based and multimedia materials is a proof-of-concept project that demonstrates the effectiveness of a successful model used in graduate statistics courses for undergraduate students. This project uses the Emporium instructional model that replaces the traditional lecture/homework format with a more flexible web-interface model.

The project develops the necessary materials for an Emporium course; assesses the major obstacles using this instructional style; creates student study guides; and conducts evaluations on the effectiveness for undergraduates. Products created are a CD and web site, which are used for further testing of materials and concepts developed in this project. This project changes the instructional format from the traditional face-to-face classroom instruction, where students have lectures in class and do problems at home; to the Emporium model where students view course content at home; ask questions, work case studies, and solve problems during lab and classroom sessions.

The project emphasizes the development of education materials that are essential in the assessment OF diversity in students' abilities and learning styles.